Photosynthesis based light transduction on a retinal prosthetic chip: Interfacing molecular reactions centers, nano-channel glass, and the retina

This project will study interactions between three distinct systems: (1) photovoltaic molecules and/or membrane structures derived from green plants and artificial photosynthetic systems, (2) micron-scale electrode arrays formed by metal wires in microchannel glass, and (3) the retina. The proposed research will provide a knowledge and technology base necessary to integrate these systems towards the successful development of a novel, energy-efficient retinal prosthesis with a micron scale spatial resolution. More specifically, these objectives will be pursued:
- Investigate interactions between natural and artificial photoactive structures and microchannel glass electrode arrays and to determine methods of attaching the structures to individual microwires.
- Develop methods for depositing conductors throughout the entire length of the microchannels.
- Determine the optimal size and shape for a retinal stimulating electrode.
- Test the biocompatibility of the microchannel glass and photoactivated microchannel glass.
Results of this research are likely to have broader application through improved understanding of metal/molecular interfaces, imaging technology, novel microfabrication techniques, and biological interfacing and testing.